A Multi-Region Workshop to Plan Worldwide Cooperative NDE Research; Montreal, Canada

Thompson
9908521

This award partially supports member attendance at the second meeting of the World Federation of NDE Centers to be held just prior to the Twenty-sixth Review of Progress in Quantitative Nondestructive Evaluation (Monteal, Canada, July 1999)

This assembly of representatives from leading industrial nations along with those of developing nations provides a forum for future research collaborations to be discussed.

The major purpose of this multi-regional workshop will be the delineation of plans for worldwide cooperative NDE research and to consider additional membership from other countries.
***